Combinatorics and Number Theory III

Title: Combinatorics and Number Theory III

PI: Wen-Ching Winnie Li, Penn State University

Abstract.

This proposal contains two projects, in number theory and its
applications to combinatorics. The first project concerns
modular forms for noncongruence groups and their connections to forms
for congruence groups. The arithmetic of the forms for noncongruence groups
is little understood. Based on their numerical data, Atkin and Swinnerton-Dyer
(ASD) suggest very interesting congruence relations to be satisfied by a basis of cusp forms for a noncongruence group. A recent joint work by the PI,
Long and Yang gives the first two-dimensional example establishing the ASD
congruence relations between forms for noncongruence and congruence groups.
To move forward, the PI plans to systematically study the structure of the
cusp forms for noncongruence groups, to explore their relationship
with forms for congruence groups, and to tackle the conjecture that
algebraic cusp forms genuinely living on noncongruence groups are distinguished
by their Fourier coefficients having unbounded denominators. The second is on
the interplay between automorphic forms and Ramanujan hypergraphs, and
connections between hypergraphs and LDPC codes. Ramanujan hypergraphs are
higher dimensional analogue of Ramanujan graphs, which are known to have broad
applications. The PI proposes to study whether the rich interplay between
combinatorics and number theory, which exists for Ramanujan graphs, extends to
Ramanujan hypergraphs. On the applied side, the PI plans to construct good
LDPC codes using Ramanujan hypergraphs, and to generalize her joint work with
Koetter, Vontobel, and Walker on characterizing pseudo-codewords for LDPC
codes from attached to graphs to attached to hypergraphs.

It has been the PI's long term research goal to do fundamental research in
number theory and to seek applications of number theory to graph theory and
coding theory, especially to solve real world problems. The study of interplay
between these areas has turned out to be quite fruitful. The PI has applied
deep results in number theory to construct efficient communication networks;
and conversely, investigations in graph theory inspired very interesting
and unexpected results in number theory. This proposal is a continuation of
the PI's effort to pursue the same general theme. The first
project of the proposal lies in basic research, to understand the arithmetics
of modular forms for noncongruence subgroups. The second project is to explore
the interplay in arithmetic and connections between automorphic forms and
Ramanujan hypergraphs, extending PI's previous success on Ramanujan graphs.
A potential application is to LDPC codes. The very efficient encoding and
decoding algorithms for LDPC codes together with their extensive
applications make them very hot research topic in coding theory. A primary
goal of the second project is to construct good LDPC codes using Ramanujan
hypergraphs, and to understand the "wrongly" decoded words arising from
the rapid decoding algorithm. A conference is planned in 2007 to disseminate
the results of this proposal.